Entropic Control of Heme Protein Electroreactivity

MCB 9904422
Guiles

This project is directed at examining the contribution of backbone conformational entropy to the total entropy change observed on oxidation of heme proteins. NMR relaxation experiments will be carried out to characterize backbone dynamics and voltametric methods will be used to determine the temperature dependence of the reduction potential. It has been shown that redox linked changes in backbone dynamics contribute significantly to the total entropy change observed on oxidation of cytochrome b5. The origin of differences in backbone dynamics can be linked to redox linked changes in hydrogen bond strengths based on enormous differences in deuterium exchange rates observed between amide protons in the two relevant oxidation states. The combined use of molecular dynamics trajectories and 13C relaxation rates should enable a more accurate characterization of the dynamic properties of the heme proteins.

The primary focus of the work involves delineation of thermodynamic contributors to the electromotive driving force involved in heme protein electron transfer reactions. NMR solution methods will be used to quantitate at atomic resolution changes in protein dynamics which can in turn be related to protein conformational entropy contributions to the electromotive driving force. The ability to modulate these redox linked changes in backbone dynamics mutagenically or through the addition of exogenous high binding affinity ligands may be useful in the engineering of heme proteins with specific electrochemical properties. Potential applications lie in the areas of electrochemical biosensors and industrial biotransformations.